Academic Research Infrastructure: Development of a Distributed High-Performance Computing Environment for Research in Science and Engineering

9601797 Shephard, Mark Flaherty, Joseph Rennselaer Polytechnic Institute Academic Research Infrastructure: Development of a Distributed High-Performance Computing Environment for Research in Science and Engineering This Academic Research Infrastructure award supports the acquisition of a high speed network and high speed computational workstations to build a high performance distributed computing environment. The research projects supported by the equipment include: 1. Development of distributed parallel processing techniques for scientific computations. 2. Application of distributed parallel computing to support research in the areas of material processing, multiscale failure analysis, and multiphase flows. 3. Development and application of virtual reality techniques to investigate the results of large scale simulations and to interactively steer the simulations. 4. Research , development, and evaluation of student mobile computing for delivery of anywhere, anytime instruction. 5. Research and development in advanced networking, and the development of an ATM-based network to support all facets of this program.